Dynamics of the Antarctic MLT Region Using Ground-Based Radar and TIMED Instruments

ATM0000957abs

The investigators will study the dynamics of the mesosphere and lower thermosphere over Antarctica using measurements from the TIMED instruments and a meteor radar to be installed at South Pole station. Specific science objectives include: the space-time decomposition of wave motions; delineation of the spatial climatology over Antarctica with emphasis on the structure of the polar vortex; dynamical response to energetic events; and interannual variability. The proposed meteor radar is a VHF system that will be able to measure the spatial structure and temporal evolution of the horizontal wind field over the South Pole. The investigators will also make use of existing ground-based radars at Davis, Syowa, Rothera, and Scott Base in the determination of the spatial climatology. Wind and temperature measurements to be made by NASA's TIMED satellite during orbits over the South Pole will provide opportunities for combined ground-based and space-based experiments and validation activities.